Mathematical Sciences: Problems in Differential Geometry and the Geometric Analysis of Embedded Minimal Surfaces

9403640 Hoffman The scope of research entails problems in the study of embedded minimal surfaces and curvature properties. These will be compared with classes of periodic minimal surfaces. The research methods take advantage of computer simulation techniques and architecture in the form of algorithmic development of the necessary programs. The research has potential applications to periodic microstructures in compound polymers. ***